Geologic, U-Pb Geochronologic, and Nd-Sr Isotopic Transect Between the Alexander and Cache Creek Terranes, SE Alaska and NW Canada

The northern part of the North American Cordillera comprises a mosaic of tectonic fragments, some of which formed in intra- oceanic environments far from North America. Other fragments appear to have accumulated in a continental margin environment. Present information about terranes in northern British Columbia and adjacent Yukon indicates that the Nisling terrane was originally formed in proximity to a continent, and is now surrounded by fragments of oceanic affinity. Prior work has out- lined relations that permit several different tectonic scenarios. This renewal will attempt, by mapping, structure and strati- graphic studies and isotopic analysis, to resolve between these possible scenarios. Results are expected to place significantly tighter constraints on the rate and processes of continental assembly in the northern cordillera.